Connections Between Global Solar Magnetic Field Evolution and Interplanetary Transients

This project will combine Wilcox Solar Observatory field data and spacecraft in-situ data or coronagraph activities to examine at least three questions related to the connection between evolution of the solar field and coronal and interplanetary phenomena. These questions include: (1) What is the relationship between the solar cycle variation of the flux out of the source surface and the occurrence rates of coronal mass ejections and their opposite counterparts, interplanetary solar wind heat flux dropouts? (2) What is the relationship between the coronal field structure evolution, as seen in the coronal field models, and the locations and characteristics of coronagraph CMEs? (3) What is the relationship between the appearance of interplanetary coronal mass ejection fields and the structure of the coronal fields in their projected source regions? Results of these studies will provide new ways of exploiting global solar magnetic field observations as a multi-purpose tool for understanding and predicting interplanetary transient phenomena.